Political Cognition and Political Expertise

A perennial problem in social psychology and political science concerns the apparent lack of consistency in the political opinions expressed by individuals. Slight changes in the wording of survey questions or in their order can have dramatic effects on the consistency and stability of expressed opinions. Accordingly, a central concern has been to examine the factors that affect the consistency of expressed political attitudes. A leading candidate in this regard is a respondent's level of political information and sophistication: Those who are more sophisticated express more consistent and stable political attitudes. An assumption that guides this research is that when an individual responds to a political survey question, he or she retrieves some relevant information from memory that is then used in constructing an appropriate response. Following this assumption, differences in response consistency and stability associated with political sophistication must be due in part to differences in the way political information and evaluations are organized in memory. Using procedures recently developed in cognitive psychology, this work will examine differences due to political sophistication or expertise in how political information is stored and organized in memory. Not only do the researchers believe that the political expert simply has more relevant political information stored in memory, but it also seems likely that that information is more tightly organized and more readily available to inform responses to political survey questions. By building a model of how political information and evaluations are organized in memory, and how that organization varies as a function of political sophistication, this research will help us better understand both theoretical issues in the domain of political cognition and practical issues in the assessment of public opinion.